A Workshop to Facilitate Coordinated Experimental/Computational Contributions to LES Modeling

A workshop will be held on experimental and computational issues that pace the progress of large eddy simulation (LES). This workshop will be held in Chicago, Illinois in October 1999. Sponsorship will come from interested programs at the National Science Foundation, the Office of Naval Research, the Air Force Office of Scientific Research, DARPA and the Center for Non-Linear Studies at Los Alamos National Laboratory.